Dissertation Research: Postpollination Effects in the Columbine, Aquilegia caerulea

Although much is known about the variation among individual plants in ability to produce seeds, little is known about how different individuals within natural plant populations differ in their ability to produce pollen. The differential success of individuals in siring seeds could be a powerful force influencing the ecology and evolution of plants. This project addresses the possibility that individuals can differ in their success in siring seeds during the postpollination phase in the blue columbine, Aquilegia caerulea. It will also determine if differential success of males, should it exist, occurs prior to fertilization or after fertilization during seed development. The study employs a number of modern techniques that allow determination of , for example, paternal contributions to seeds when pollen from more than one individual has been applied to a single stigma. Controlled breeding experiments will reveal the effects of environment, maternal, and paternal parents on seed produciton and seed and seedling characteristics. By doing such studies in both natural and cultivated populations of plants, the project can determine tha potential for selection on male reproduction in nature. Further studies can determine whether variation in success of individuals is caused by features which are inherited by offspring. Understanding the potential for selection on male success after pollination is relevant to studies in evolutionary biology and to development of artificial selection techniques in crop breeding.